Children's Library Discovery Center (CLDC): 'Science in the Stacks'

The Queens Borough Public Library (QBPL) will develop "Science in the Stacks," an integrated, multi-sensory, self-paced informal learning environment within its forthcoming Children's Library Discovery Center. It will include 36 Discovery Exhibits developed by the Exploratorium, three Learning Carts for scripted activities by librarians, six Information Plazas, a Discovery Teens program, a web site and supporting educational activities. The theme will be multiple pathways to the world of information. QBPL will be collaborating locally with the New York Hall of Science and the Brooklyn Children's Museum.

Overall, QBPL receives some 16 million visits per year; the target audience for this project is children ages 3 to 12. In addition to its public impact, "Science in the Stacks" will have professional impact on both the science center and library fields, showing how it is possible to combine their different modes of STEM learning in complementary ways. Although library-museum colaaborations are not new, this one is the first attempt to combine their respective learning resources on a large scale. It offers the potential to serve as a new model for both fields, enabling visitor (patron) entry into self-directed STEM learning through books, media, programs or hands-on activities.